A Planning Visit Trip to Vietnam for U.S.-Vietnam Meetings on Joint Engineering/Science Education and Research

0093043
Le

This award supports a planning visit by Thuy Le and Donald Kirk, San Jose State University, to Vietnam. The purpose of the planning visit is to determine the potential for joint long-term research and education cooperation, including distance education, between Vietnam and the US. Through visits to universities and research institutes in Hanoi and in Ho Chi Minh City, the US PIs will explore the status of higher education in engineering in Vietnam, and investigate barriers to distance learning. Information gathered during the trip will be available through a website following the visits.